Spin Relaxation and the Structure and Dynamics of Defects in Materials

They will continue a joint theoretical and expermental approach to the study of defects in materials. Much of the effort will be directed towards NMR in amorphous semiconductors, in disordered metallic alloys, and in very small sample materials at high pressures and in superlattice arrays. Their principal goal is to examine the role of hydrogen rearrangements in amorphous semiconductors and metallic alloys.